Computerizing the Pre-calculus Classroom

9352282 Veldkamp Precalculus students and preservice teachers are the primary beneficiaries of expanding the use of the computer laboratory concept at Dordt College. A computerized approach to mathematics instruction is enabling undergraduate students to discover mathematical theories and use electronic technology to come to a better understanding of mathematical concepts. With secondary education mathematics majors as assistant instructors, preservice teachers are obtaining hands-on experience using electronic technology in the classroom and teaching students to use such technology appropriately. ***